Minority Student Support

This award is made to the Chairperson, Department of Environmental Sciences, University of Virginia, Charlottesville, VA 22906, to support the graduate studies of Todd DeJesus. The funds are to be managed by the P.I., and NSF intends to support the student for up to three years, provided the Chairperson reports satisfactory progress toward a degree in annual reports to NSF.